Topical Meeting on Short Wavelength Coherent Radiation: Generation and Applications; North Falmouth, Massachusetts; September 26-29, 1988

The Topical Meeting on Short Wavelength Coherent Radiation will bring together the most active scientists in the development of short wavelength lasers, free electron lasers, laser-plasma radiation sources, and ultra fast short wavelength sources, as well as those using such developments in other areas of physics and engineering. This conference fills a particularly useful role in these areas, and is an internationally-recognized meeting place.